Microelectronic System Education Conference to be held July 29 - August 1, 1990 in San Jose, California

The purpose of this conference is to promote communications between microelectronics educators, industry personnel, and government who are interested in improving microelectronics education. Particular emphasis is given to upgrading undergraduate microelectronic systems education in primarily undergraduate institutions. This is the third annual conference with expanded scope in topics, participants and activities.